EAGER: PXFS - A Persistent Storage Model for Extreme Scale

The challenges of Exascale computing suggest that a new model of computation is needed upon
which a new framework for mass storage may be built. Such a model currently under development is the
ParalleX model. ParalleX addresses Exascale parallelism by removing most (if not all) global
synchronization and providing a natural means for programs to manage local dependencies that maintain
consistency. In a similar manner, we propose to develop a model of parallel storage that achieves the
desired semantics without global synchronization. At the same time, the model will adopt a new
programmer interface that reflects this approach. This I/O model is named PXFS and is intended to be
integrated with the ParalleX model of computation, both by providing an I/O model for ParalleX and by
being defined in terms of ParalleX.
The goals of the proposed research are to derive a new model of persistent mass storage that
unifies it with active in-memory data and develop PXFS, a proof-of-concept file system to enable
effective and scalable Exascale computing. The objectives of the proposed project are to describe the
PXFS model in complete terms, develop an initial reference implementation integrated with the HPX
implementation of ParalleX, and evaluate the model via the reference implementation.